Biophysical and Cell Biological Approaches to the Cryopreservation of Embryos From Lines of Drosophila of Genetic Interest

By carefully controlling the developmental stage of Oregon R Drosophila embryos, we have succeeded in subjecting them to cryogenic temperatures with reasonably high survivals; Some 65-70% hatch and nearly 40% of the resulting larvae develop into fertile adults. The purpose of the proposed work is (1) to identify the especially critical factors and their tolerances so as to facilitate the use of the procedure by the Drosophila community; (2) prepare a detailed protocol of the procedure which identifies the critical steps and their tolerances; and (3) test the applicability of the procedure to two representative mutant lines. With respect to Aim (1) we are finding that the step that limits survival is the exposure to 8.5 M ethylene glycol that precedes vitrification. Part of the damage from that exposure could be a result of the osmotic dehydration accompanying the addition of concentrated ethylene glycol or it could be osmotic swelling associated with the removal of ethylene glycol after vitrification. Part of the damage could be the result of chemical toxicity of the high concentrations of glycol used. The damage associated with shrinkage and toxicity could be ameliorated by reducing the extent and duration of shrinkage by reducing the concentration of glycol, by changing the exposure temperature, or by the use of a more permeable cryoprotectant like perhaps dimethyl sulfoxide, all of which will be tested. A critical point to be determined is to what extent one can manipulate these aspects of the cryoprotectant and still achieve vitrification. To reduce potential damage from osmotic swelling, we shall optimize the sucrose dilution procedure used to control that swelling. We also propose to determine the tolerances to certain critical steps during vitrification per se. These include (a) can boiling liquid nitrogen be used in place of nitrogen slush? If so, it will simplify the procedure; (b) are the 15-hr embryos now being used as sensitive to brief exposures above -100 C and to warming rates slower than ultra rapid as the 12-hr embryos used previously? Knowledge on these points will be important to users of the procedure. %%% Because Drosophila melanogaster is such an experimentally powerful organism, the numbers of mutant and/or genetically modified stocks has become an overwhelming problem. To date, all stocks must be transferred about every two weeks. The development of a method to freeze embryos which is simple enough to be used in biology laboratories and yet allows a recovery of fertile at a 40% level will save millions of dollars and man-hours of work in a reasonably short time. It should also help to ensure that important stocks do not undergo genetic drift over time.